CAREER: Synthesis of Metallo-Dendrimers Using Metallo-Phosphoramidites

With this CAREER award the Organic and Macromolecular Chemistry Program supports the work of Dr. Mark W. Grinstaff of the Department of Chemistry at the Duke University. The research aims to develop a new automated solid-phase method for the synthesis of novel metallo-assemblies and metallo-dendrimers, and to systematically study the energy/electron transfer reactions in these nanostructures. Variables to be investigated include distance between donors and acceptors, thermodynamic driving force, polymer composition, and polymer sequence. The understanding developed in this project could find uses in biochemistry, pharmacology, biology and engineering, including the conversion of solar energy into stored chemical energy.
The educational part of the work includes hands-on experiences for high school students in university chemistry laboratories, and a new advanced general chemistry course based on solid-state materials. Students working with the PI will gain valuable skills in the areas of metallo-organic synthesis, polymer characterization, electro chemistry, and photochemistry.